L-values, Galois Representations, and Modular Forms

DMS-0245387
Skinner, Christopher

Abstract:

This proposal investigates connections between L-functions and
Galois representations. More precisely, the investigator connects
special values of L-functions of varieties or motives to the orders of
associated Selmer groups. In joint work with E. Urban the investigator
showed that if the L-function of a modular form of weight 1 vanishes to
odd order at its central critical point then the rank of the corresponding
Selmer group is infinite. The investigator is exploring extensions to
representations of higher dimension and to pursuing a ``mod p''
version of this result relating the p-adic order of the L-value (if
finite) to that of its Selmer group. Additionally, the investigator is
completing work in collaboration with M. Harris and J.-S. Li that
constructs p-adic anti-cyclotomic L-function for automorphic
representations on unitary groups U(n) and which makes progress towards
anti-cyclotomic ``main conjectures'' for these groups. Doing so involves
relating these L-functions to congruences between endoscopic and stable
automorphic forms on U(n). The investigator is also pursuing an approach
to the ``main conjecture'' for modular forms on GL(2) by studying the
arithmetic of certain Eisenstein series on U(2,2).

Number theory is often divided into two branches: analytic and algebraic.
The investigator is studying the connection between many seemingly
unrelated objects from these two branches. The primary focus of the first
branch is the study of L-functions - complex functions built of
number-theoretically interesting data (such as the Riemann zeta function
which is built out of the prime numbers). The other branch focuses on
algebraic objects such as class groups. But it is now expected that these
are not unrelated: values of certain L-functions at special points
(generally integers) should be the orders - the sizes - of certain of the
algebraic objects. Such connections are generally very signifigant.
One instance was a crucial ingredient in Andrew Wiles' proof of Fermat's
Last Theorem, for example. Drawing from the theory of automorphic forms,
the investigator's work establishes new instances of these conjectures.
This work is motivated by the fact that special values of L-functions
appear in the fourier coefficients of modular forms.